An Experimental Study of the Structure of an Impinging Coaxial Jet: Research Initiation Award

A jet impinging on a rigid surface will be studied with the aim of alleviating resonance effects which can occur in this situation. Both subsonic and supersonic conditions will be investigated experimentally. The focus is to be on co-axial circular jets, in the belief that this configuration is highly likely to provide reduction in adverse pressure fluctuations. Such reductions have been observed in free co-axial jets, and their ground impingement has not been previously explored. Application is to VSTOL aircraft, particularly to supersonic operation.